Studies for a Contextualized Philosophy of Science

Professor Fine is examining issues relating to the general topics of theories, explanation and interpretation--issues central to our understanding of how science develops--as they arise in the context of quantum theory. The studies will examine how these topics are conceptualized in the quantum domain by examining the different conceptions employed in treating a number of concrete philosophical and scientific problems there. The object is to get a profile of the conceptions in the context of reflexive scientific practice, so as to further our understandings of the concepts and of that practice. The background for the studies is the movement toward a more piecemeal approach in the philosophy of science. In particular, these studies should help assess the orientation developed by Professor Fine (which he calls "the natural ontological attitude"); for that assessment requires a repertoire of detailed context-sensitive studies as a basis for reasoned judgments regarding the prospects and limitations of this approach to science.